High-Speed Scanning Probe Microscopy of Semiconductor Nanostructures

9529631 Sarid This proposal describe a research plan to upgrade the capability of an existing UHV-STM systems to study the time-dependent response of the local density of states (LDOS) for a variety of species adsorbed on metal and semiconductor nanostructures. The PI proposes to use fast lasers for the photoexcitation of electron-hole pairs in the semiconductor nanostructures. The photoexcited carriers will modify the LDOS of the semiconductor and the carrier decay will be measured via the surface photovoltage generated. In particular, the temporal response of the LDOS on an around atoms and molecular adsorbed on metal and semiconductor surfaces will be examined with sub-nanometer and sub-nanosecond resolution. The modification of UHV-STM equipment will permit the study of the LDOS in the vicinity of the adsorbed molecules and determine the nature of their bonding. The research will shed light on the intricate bonding of molecules to surfaces from both the spatial and temporal points of view. ***